NSF REU Site in Nanomaterials Processing and Characterization (NANOPAC-SITE)

This award provides funding to the University of Central Florida for the support of a three-year, REU Site in Nanomaterials Process and Characterization (NANOPAC), under the direction of Dr. Sudipta Seal. This ten-week summer program housed in the Advanced Materials Processing and Analysis Center (AMPAC), will involve ten students annually in an intensive research experience on a wide range of topics including applications in sensors, optics, coatings, thin films, and high resolution transmission electron microscopy. Each student will be paired with an engineering faculty member with on-going research programs in AMPAC faculty mentor and will be actively involved with the mentor's research group. In addition, the participants will be involved in extensive complementary educational activities, including a weekly seminar series focusing on heir research projects, career seminars/field trips, and specialized workshops on assorted topics. As a capstone to their REU experience, each student will prepare and give a presentation at a concluding poster session to UCF faculty and invited industry participants.